Plasma Science Committee (Physics)

The National Academy of Sciences/NRC has formed a Plasma Sciences Committee, to represent the various aspects of this wide ranging discipline. This committee will now prepare a number of studies: among them will be a survey of the field of plasma science, which will be valuable both to scientists and to federal agencies involved in this area. Other studies will lead to workshops and symposia, exploring the most promising lines of future research. This field has long needed these studies, and this committee will be an important and valuable independent unifying body in this area.